NSF Young Investigator: Measurement of CNB Anisotropy

9357217 Page The proposed research entails the measurement and characterization of the anisotropy in the cosmic microwave background at frequencies between 30 and 300 GHz and angular scales between 0.5 and 180 degrees. ***